A New Methodology for Teaching Engineering Ethics

Undergraduate engineering curricula in the U.S. require issues of engineering ethics to be addressed. Engineers and the engineering profession recognize that students need to learn how to use and assess available information in making ethical decisions, and how to test and develop their own perspectives on professional ethics. They need to develop the thought processes necessary to integrate information with acceptable professional "norms" of behavior, to make ethical decisions. Yet, surveys demonstrate little in the way of formal or systematic approaches to the development and testing of new curricula or teaching methods. This project will develop an interactive computer simulation to assist in teaching undergraduate engineering students to develop critical thinking skills and apply them to the consideration of ethical, legal and social aspects of engineering decisions. The goal is to develop a tool that can serve to supplement and extend traditional teaching in engineering ethics. This initial phase of the project will develop and test an expert system simulation of one to five scenarios. Several expert system shells will be evaluated for this purpose. Data bases for the simulation will be designed to incorporate data from all branches of engineering and all states; but the initial model will use data collected only from Iowa and from civil engineering. The computer data bank will contain information from professional societies and advice from colleagues and attorneys, and from other sources, which students must evaluate to arrive at their final decisions. The approach should provide students with simulated real world experiences and expose them to the complexities and uncertainties in resolving problems in engineering ethics. This project addresses an important issue in a unique way. The research team is interdisciplinary and well qualified to collaborate in the development of the "engineering ethics tutorial." Collaboration and further effort are likely to continue beyond the duration of this award. The project is designed well; appropriate testing and dissemination are planned for this initial phase. University support is good. An award in the amount of $91,420 is therefore recommended, to be made in two equal increments. The first half will be awarded in this fiscal year.